Bridging Micro and Macroevolutionary Patterns: Population Genetics of Coevolutionary History

Jason Weckstein and John Bates of the Field Museum and Alex
Aleixo of the Museu Paraense Emilio Goeldi will use DNA
sequencing technology to reconstruct the history of
associations between two codistributed toucan host groups
and two of their parasitic chewing louse genera. Their main
objective is to determine how different parasite groups,
which differ in features of their biology and ecology,
respond to identical geographical and habitat perturbations
(diversification and speciation of the hosts). Studies of
hosts and permanent ectoparasites provide a unique
opportunity to reconstruct the history and the environmental
context in which the processes of diversification and
speciation occur. Permanent ectoparasites are hypothesized
to share a common evolutionary history with their hosts,
therefore, one can reconstruct this history of interactions
between hosts and parasites by superimposing the parasite's
evolutionary history onto the host's evolutionary history.
The replicate parasite lineages included in this study live
their entire life cycles on the same avian hosts, yet are
members of different louse suborders that differ in a
variety of biological and ecological features. By comparing
these replicate parasite groups, this study will assess how
unique features of each parasite's biology correlate with
diversification in the hosts. Insights gained in this
simple system will shed light on patterns of speciation and
diversification in the more complex systems of free-living
organisms.
This project also has a number of important societal
benefits. First, this work will document basic patterns of
biological diversity in Amazonia, one the earth's richest
ecosystems. It also will involve international
collaboration between US and Brazilian researchers from the
Field Museum of Natural History and the Museu Paraense
Emilio Goeldi. Researchers and students will travel between
these two institutions to teach, learn, work, and
collaborate with each other to further our understanding of
speciation and diversification in the tropics. This
international collaboration will provide an unprecedented
opportunity to study patterns of diversification and
speciation in the Amazon. Second, studies of lice and their
vertebrate hosts have played a prominent role in
understanding the historical associations of hosts and their
parasites. Theories and analytical methods developed using
these model organisms have been applied to other systems
such as vertebrates and their viruses, which are critical to
human health issues. This project will further the
biological understanding of these kinds of systems and will
help us to understand the ecological characteristics that
provide opportunities for disease causing parasites to jump
between hosts.